Cellular Growth and Differentiation: Neurite Extension

The overall goal of Dr. Marshak's project is to understand the molecular mechanisms controlling the formation of neurites during the growth factor, neurites during growth and differentiation of stimulation of neurite extension by the polypeptide growth factor, neurite extension factor (NEF), and on the molecular events that result in the establishment of neuriteic connections. NEF is an acidic protein of mass 21,010, whose complete primary structure has been elucidated. NEF stimulates neurite outgrowth from central neurons and neuroblastoma cells, but not from peripheral neurons. Thus, NEF is the first well-characterized, soluble, polypeptide differentiation factor for the central nervous system. NEF appears to be secreted from astrocyutes, and to act on post-mitotic neurons. A receptor for NEF on cerebral cortical neuronal cell membrane fractions has been demonstrated, and appears to be specific and of high affinity. The specific objectives of the project are: 1) to further characterize the receptor for NEF; 2) To identify the mechanism of signal transduction for NEF; expression of proteins involved in neurite formation, including cytoskeletal proteins. As models of the central nervous system, these experiments will employ primary chick embryo cerebral cortical neurons and mouse neuroblastoma. The proposed project is a multi-disciplinary one involving protein biochemistry and cellular neurobiology, as they relate to cellular development and the interactions between cells. This research is anticipated to yield information of value to studies of disorders in cellular growth and differentiation.